2000 Photonuclear Reactions July 30 - August 4, 2000

0087161
de Jager
This grant provides partial support for the 2000 Gordon Research Conference on Photonuclear Reactions, to be held at the Tilton School in Tilton, NH, July 30 - August 4. The structure of the conference encourages speakers to minimize review and to maximize information concerning new developments in the field. The meeting is especially timely with the rich experimental program now underway at Jefferson Laboratory in the United States, as well as new results becoming available from other electromagnetic accelerator laboratories worldwide. The funds will be used to support the participation of graduate students and junior researchers.